CRCNS Research Proposal: Collaborative Research: The Space of Riemannian Metrics for the Statistical Analysis of the Human Connectome

The human brain is one of the most complex biological geometrical objects. The Human Connectome Project aims to make available an unparalleled compilation of neural functional and structural imaging data from healthy adults. Data from over 900 subjects has already been released. The principal data provided by the Human Connectome Project are diffusion-weighted MRI and functional MRI. Due to the amount and complexity of the data generated in this project, new techniques to analyze, compare and represent these data are needed, which is the motivation and driving force for the research outlined in this proposal. This collaborative project has three fundamental goals: (1) to further develop the mathematical theory of geometrical statistics, in particular the role of the infinite-dimensional manifold of all Riemannian metrics; (2) to develop practical tools for the statistical study of the connectivity of the human brain; and (3) to demonstrate the utility of the developed techniques for the segmentation and parcellation of the thalamus and other subareas of the subcortical gray matter that are not visible in structural MRI.

This project will develop for the first time statistical techniques on the infinite-dimensional manifold of Riemannian metrics. The project team believes that the space of Riemannian metrics is the natural framework for analyzing the variability of the architecture of the human brain. Diffusion-weighted MRI allows the investigators to model an individual human brain as a Riemannian manifold with axonal connections that are geodesic curves of an appropriate metric. The team will study the space of all Riemannian metrics and develop methods based on geometrical statistics for the analysis of the whole population. An immediate practical application of the techniques developed will be the parcellation of the thalamus based on thalamocortical connectivity. The internal architecture of the thalamus is not visible in standard structural MRI but rather is defined via the connections to the different areas of the cortex. In this project, the investigators will partition the thalamus by projecting the functional partition of the cortex onto the thalamus via the connectomics. The aim is to use geometric statistical mapping methods to produce a statistically informed partition of an individual patient's thalamus. The primary driving motivation is to eventually improve outcomes of deep brain stimulation as a therapy for essential tremor, in which the thalamus is the primary target. The subcortical white matter is also implicated in many neurological disorders, such as ischemic vascular disease, Huntington's, Multiple Sclerosis, and HIV/AIDS dementia. The PIs envision that the statistical techniques developed for qualifying the detailed architecture of the white matter in the normal population will have implications for all these diseases. This project will provide novel analytical tools to unravel the mysteries of the human brain.